RAPID Deepwater Horizon Oil Spill: Insights into salt marsh food webs from the Deepwater Horizon oil spill

Intellectual Merit:

The Deepwater Horizon oil spill was an unexpected event that represents a major disturbance to coastal systems. Our understanding of how oil affects coastal wetland communities is incomplete. In particular, we know little about how oil affects the arthropod food web, about dose-response relationships between oil exposure and community response, and about long-term recovery from exposure. Moreover, the spatial extent, severity and persistence of this novel disturbance will provide new insights into how coastal wetlands function. Pennings' laboratory is well poised to examine how this novel disturbance will affect coastal wetland communities. His group has set up and sampled an experiment in 2009 at 22 coastal wetland sites ranging along the Gulf Coast from Texas to Florida and the Atlantic Coast from Florida to Maine. This RAPID project will re-sample the same sites and plots in 2010 and future years to determine how the coastal food web is affected and recovers. The PIs will test the hypotheses that: a) oil exposure will reveal that herbivorous insects and snails have strong negative effects on salt marsh plants; b) oil exposure will reveal the importance of 'transient' members of the arthropod food web; c) oil exposure will interact with fertilizer and wrack treatments to affect the arthropod food web. Because of its spatial extent and persistent effects, the oil spill represents a novel disturbance to coastal wetlands. Evaluating community responses to this disturbance will provide new insights into how the food web functions, leading to a deeper understanding of this critical system.

Broader impacts:

Salt marshes provide a variety of critical ecosystem services to humanity. New scientific insights provided by this project will help predict the future condition of coastal wetlands, which are threatened by a combination of sea level rise, eutrophication, and other stressors such as oil spills, including this largest spill in U.S. history. Public interest in the health of coastal ecosystems is intense, and has already led to interviews of Pennings by journalists following the Deepwater Horizon oil spill. The results of this RAPID project will be of considerable media interest. In addition, the project will train two graduate students and one undergraduate in ecosystems science.